Mathematical Sciences: RUI: Products of Projections in Hilbert Space

Professor Dye will investigate the problem of convergence of products of linear or nonlinear projections in Hilbert space. The work would generalize von Neumann's famous result involving two orthogonal projections. The work involved finds application in such diverse areas as the numerical solution of partial differential equations, linear inequalities, mathematical programming, and image recovery to name a few.